Research Experience For Undergraduates

The ability to expand the research opportunities for undergraduate students to participate in some of the advanced research laboratories in the Bradley Department of Electrical Engineering at Virginia Polytechnic Institute and State University (Virginia Tech) is the basis for this REU site. The summer program is specifically designed to provide opportunities predominantly to students from historically black colleges and universities, but not exclude students from other institutions.